Atmospheric Chemistry of Sea Salt Particles in Regional & Remote Air Environments

This is a study of the reactions of atmospheric nitrogen compounds with components of airborne sea salt, and of the chemistry of the gaseous products of these reactions. It is designed to clarify questions of atmospheric composition in coastal regions and of the possible impact of there reactions on tropospheric ozone in the Arctic. Laboratory studies will be conducted to measure the absolute kinetics of the reactions of HNO3, NO2 and N2O5 with NaCl and NaBr. Whether these reactions continue to occur when the salts are dissolved in ice will also be determined and compared to the reactions of HBr in ice. The photochemistry of the newly discovered gaseous BrNO2 and the atmospherically relevant kinetics and mechanisms of reaction of ClNO2 will also be determined. The results of these experimental studies will then be used to quantitatively assess the importance of these heterogeneous gas-solid reactions in the chemistry of regional polluted areas, as well as remote areas such as the Arctic.